AF: SMALL: Provable Algorithms for Nonhermitian Matrices

Finding the eigenvalues and eigenvectors of a matrix is among the most
fundamental computational tasks. These quantities correspond to resonant
frequencies and modes of physical, statistical, and mathematical systems and
appear in essentially every area of science and engineering. First year
college students are taught how to compute them on small examples, and two of
the ``top 10 algorithms of the twentieth century'' --- the QR Algorithm and
the Arnoldi algorithm --- were designed to do so on large instances. When the
matrices involved are symmetric, these methods come with provable guarantees
showing that they are accurate, fast, and correct. However, the general
non-symmetric case remains poorly understood, and rigorously analyzing these
algorithms in general has been a decades-old mystery in numerical analysis,
despite their being implemented in standard software packages. The main goal
of this project is to solve these and related mysteries using modern tools of
random-matrix theory and theoretical computer science. Doing so will put a
large branch of computational practice on solid theoretical footing, and
ideally foster deeper interaction between the numerical analysis, mathematics,
and theoretical computer science research communities.

Specifically, the project will aim to analyze the two (currently heuristic)
algorithms mentioned above, with the following concrete major goals: (1) find
a shifting strategy for the shifted QR method which provably converges rapidly
for every matrix; (2) formalize a widely held belief precisely relating the
output of the Arnoldi algorithm to the pseudospectrum of the input matrix.
Secondarily, the award will study the adjacent problem of efficiently
computing an approximation of the Jordan normal form of a given rational
matrix in the variable precision model of computation, for which good
complexity bounds are not known. The project will likely use techniques from
random-matrix theory, dynamical systems, algebra, and numerical analysis,
building on recent progress of the investigator and collaborators in some of
these areas.